Spatial Price Competition and Market Share Among Multi-Locational Corporations

In recent years, considerable attention has been paid by economic geographers and spatial economists to the operation of spatial markets. Most of our understandings of spatial competition assume independent entrepreneurs rather than franchises of larger corporations. Study of the behavior of multi-locational companies, which must simultaneously develop strategies at both national and regional or local levels, can provide new insight into some of the more significant yet neglected aspects of spatial competition. Such work will ultimately make possible the development of theory which is no longer restricted to the analysis of space economies under conditions of perfect or near perfect competition. Specifically, Dr. Sheppard examines the relationships between selected processes of macro-level corporate strategy and micro-level behavior of the firm in the context of spatial competition in multi-location corporations, typified by the gasoline distribution and retailing industry. Separating supply side issues of distribution from demand issues of consumer behavior, he will develop mathematical models of these relationships to provide a basis for simulation routines. The simulations will in turn be used to examine realistic situations. This examination of spatial price competition and market share amongst multi-locational corporations has the potential to make major contributions to our understanding of the spatial dynamics of economic activities and to the development of theory in economic geography that incorporates the institutional context of economic relations and applies to realistic situations. It will provide a foundation in the field of economic geography for the capability of theoretically informed international comparative analysis.